Proposal for An International Cooperavive Research Initia- tive Involving The Ind./Univ. Cooperative Research Center atNJIT and French Industry/University/Government Counterparts

Hazardous waste management is a world wide concern. The French Ministry of Environment is initiating an Industry/University Cooperative Research Center with a consortium of French universities to address this area. If this Center is successfully initiated, it represents an opportunity of complementary research with which the New Jersey Institute of Technology's Industry/University Cooperative Research Center for Hazardous Waste Management might interact. Such a collaboration could occur as part of a new experimental program, International Industry-University-Government Cooperative Research Initiative. This award funds a case study of the French efforts to establish an Industry/University Cooperative Research Center for Hazardous Waste Management. Upon the completion of French activities initiating the Center, the New Jersey Institute of Technology is to publish a report detailing the case history and its success. If the Center is successfully formed with a significant number of companies providing support, a second phase of the award funds a study to design an international cooperative research program. The study will address potential research areas and organizational ties that need to be developed to have an International Industry-University-Government Cooperative Research Initiative. The Principal Investigator and colleague are internationally recognized experts and have both the industrial and international contacts necessary to perform the studies. The Program Manager recommends the New Jersey Institute of Technology be awarded $45,000 for a two (2) year continuing grant. The first phase is recommended for $25,000 for one (1) year. The second phase of $20,000 for one (1) year from the Directorate for Science, Technological and International Affairs will be contingent upon NSF evaluation of the phase one report indicating the success of the French Center.